Marine Geological Samples Collection: Hawaii Institute of Geophysics

The core and dredge collections of Hawaii Institute of Geophysics will be maintained, samples distributed, and data provided to the NOAA National Geophysical Data Center. The core/dredge repository provides a valuable source of marine seafloor samples for use by national and international scientists.